Reducing Properties of Anaerobic Sediments: Molecular Probe Studies of Biogeochemistry and Contaminant Fate

This award in the Environmental Geochemistry and Biogeochemistry Program is made to Drs. Paul G. Tratnyek, V. Renganathan, and David R. Boone of the Department of Environmental Science and Engineering, Oregon Graduate Institute, for studies of contaminant fate in anaerobic sediments. The research is supported by the Divisions of Chemistry and Earth Sciences and the MPS Office of Multidisciplinary Activities. Some contaminants undergo reduction in anaerobic soils, but the biochemical and geochemical factors controlling the chemical reaction are not well understood. The goal of this research is to develop molecular probes that can elucidate reduction processes in sediments from coastal, estuarine, and freshwater environments. Initial work will use 2-chloroacetophenone (2-CAP) to monitor the reduction process. This chemical is reduced to 2-(chloromethyl)benzyl alcohol when it reacts by electron transfer, and to acetophenone when reduced by hydride transfer. By measuring the amount of each of these three compounds present in the sediment, the rate of reduction and the capacity of the soil for reduction will be determined. The formation of acetophenone implies reaction with extracellular nicotinamide, one of the few possible sources of hydride in such systems. Results will be correlated with microbiological studies to develop a model of the biogeochemical reduction process in various soils. Additional molecular probes will be studied as means of more fully characterizing the reducing capacity of real environmental materials. Pollutants such as chlorohydrocarbons, sulfoxides, and quinones can be transformed in soils by chemical reactions in which electrons are added to the contaminant from environmental sources, both organic and inorganic. The details about how these reactions occur as well as the rates and extent to which they occur in various types of soils are not sufficiently understood to predict contaminant fate in the environment. In this research a general method to test the environmental relevance of various models will be developed with the long-term goal of providing a predictive tool useful to regulatory decision-making.